Mathematical Sciences: Metaplectric Eisenstein Series and Theta Functions

The first part of this research is concerned with some problems in the theory of metaplectic forms on the general linear group. These problems are related to convolutions of theta functions with cusp forms and with other theta functions and to the nature of the Fourier coefficients of theta functions and parabolic Eisenstein series. The second part of this research is concerned with an extension of this work to the study of metaplectic forms on the double cover of the four dimensional spin group and with some applications to number theory.